HCC: Human-Centered Interfaces for Safe and Effective Supervision of Autonomous Drone Swarms

Autonomous drone swarms, groups of aerial vehicles that operate cooperatively without human controllers, could transform how society responds to disasters, monitors wildfires, assesses infrastructure damage, and tracks rapidly changing environmental conditions. In these situations, teams of people may need to oversee many autonomous drones simultaneously while making rapid decisions under uncertain and stressful conditions. However, current technologies often make it difficult for people to understand drone behaviors, coordinate effectively with one another, and know when to step in before problems escalate. This project will develop human-centered interfaces that enable teams to safely supervise autonomous drone swarms in time-critical situations, improve the safety and reliability of autonomous technologies, and strengthen the nation's preparedness for future emergencies. The project will also provide students with hands-on research experience in human-centered design, autonomous systems, and real-world field robotics.

The project will create and evaluate new interface designs and testing methods that support teams of people supervising autonomous drone swarms in simulation environments, remote operations, and real-world field deployments. The research combines cognitive work analysis, user-centered design, behavioral measurements, and biometric sensing to study how people maintain awareness, coordinate with teammates, develop appropriate reliance on automation, and intervene when autonomous systems encounter unexpected situations. The project will also establish a rigorously instrumented experimental platform that enables direct comparison of human performance across increasing levels of operational realism. A novel aspect of the research adapts automated stress-testing techniques to systematically discover failures that may emerge when people supervise autonomous drone swarms. Computational models of human behavior and uncertainty-aware evaluation methods will identify interaction problems that traditional user studies may overlook. These vulnerabilities will then be validated through experiments involving human supervisors and mitigated through iterative interface redesign. The resulting datasets, evaluation protocols, and interface designs will establish a scientific foundation for creating safe, transparent, and reliable methods for supervising future autonomous multi-agent systems.